Aquisition of a 400-MHz NMR Spectrometer for Cyber-enabled Research and Teaching

With support from the Chemistry Research Instrumentation and Facilities: Departmental Multiuser Instrument Acquisition (CRIF:MU) Program, the Department of Chemistry at Rutgers University will acquire a 400 MHz nuclear magnetic resonance (NMR) Spectrometer. Research by the major users will be in areas of (a) organometallic chemistry with a focus on development of new catalysts for the functionalization of C-H bonds of alkanes, alkyl groups, and arenes; (b) synthesis of natural products and development of novel enantioselective epoxidation methods; (c) synthesis and characterization of modified/labeled nucleosides, and DNA and RNA fragments; (d) reactive intermediates and mechanistic organic chemistry; (e) synthesis and dynamics of novel ionic liquids and of novel, polymeric drug delivery systems and (f) molecular container chemistry with a focus on encapsulated reactive intermediates.

Nuclear Magnetic Resonance (NMR) spectroscopy is one of the most powerful tools available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometers is essential to chemists who are carrying out frontier research. The results from these studies will have an impact in synthetic organic chemistry, pharmaceutical chemistry and materials chemistry.